Study of Stress-Strain Behavior of Granular Soils by Numerical Experiments Using Random Arrays of Elastic Spheres

This project will study the behavior of granular soils in static and cyclic processes by means of a computer simulation. In the computer simulations the soil is represented by a random array of quartz spheres. The proposed numerical experiments will investigate behavior under drained and undrained conditions and the accumulation of pore pressure and densification during cyclic loading.